Extending the Campus Wide Network via NSFNET

9420644 Robinson This project connects Northwestern College to the Internet through MIDNET over a 56 kbps line. Faculty and students benefit from access to the resources of the Internet, including libraries and supercomputers. In addtion, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.